Improved Surfaces for Electron Devices (Materials Research)

This proposal employs ion implantation and ion beam mixing as a means of alloying low work function elements into surface regions of substrates. Such surfaces should exhibit high secondary electron yields. Proposed research will explore the introduction of selected elements (e.g., barium and cesium) into the emitting surfaces. Potential applications include photomultipliers, electron multipliers, and channeltron-type devices.